System for Insitu Rehabilitation of Pipelines

This award will investigate the feasibility of an innovative method to rehabilitate water and waste water pipelines. Factors to be considered are: a liner initiation device, a movable extrusion die, an extruder, a liner control and cooling system and a liner termination device.